Atlanta Conference on the SSC: Industrial and Scientific Opportunities; Atlanta, Georgia; November 14-15, 1990

This award will partially support the Atlanta Conference on the SSC: Industrial and Scientific Opportunities; Atlanta, Georgia; November 14-15, 1990. The conference will focus on the scientific and industrial opportunity at the SSC. Invited papers will be given on the SSC project and its relation to the scientific and industrial effort in the U.S. as well as on the physics at SSC and on detector research and development for the SSC experiments.